Engineering Research Equipment Grant: Equipment in Support of Polymer Reaction Engineering

A research equipment grant is awarded for the purchase of a Micromeriticus Flowsizer Hydordynamic Chromatograph and a High-Resolution Gas Chromatograph. These instruments will be used in research inheterogeneous polymerization reaction engineering--the first for determining latex partical size distribution and the second for determining relative reaction rates and copolymer conposition during conpolymerization. Measurement of partical size distribution is important because end-use properties are directly proportional to the polymer partical size and to the particle size distribution. Hereogeneous copolymetization can not be followed by simple density measurement; the compostion of the unreacted monomer and product polymer are both required.